NSF Young Investigator

9357507 Shen This is a New Young Investigator Award for research in condensed matter physics using electron spectroscopy techniques. These techniques represent a powerful tool to study magnetic 3d and 4f electrons in atoms in magnetic and superconducting materials. This research will mainly involve spin-polarized appearance potential spectroscopy and spin-polarized inverse photoemission spectroscopy. These techniques will be used to study magnetic and other materials, particularly thin films and multilayers. These studies will be complimented by high-resolution photoemission and other experimental techniques. %%% This New Young Investigator Award will support research to develop an advanced magnetic materials characterization technique and will be carried out in close collaboration with scientists from IBM who have provided most of the equipment needed for the project. This technique is currently unique in the US and has potential to provide fundamental information about the materials properties of magnetic thin films and multilayers. These properties are important for applications of these materials as sensors and as magnetic storage media. ***